SUSY06: The 14th International Conference on Supersymmetry and the Unification of Fundamental Interactions

This proposal requests support to enable junior researchers to attend the 14th SUSY Conference, which will be held at UC Irvine 12-17 June, 2006. This international conference brings together experimental and theoretical researchers from all over the world who work on Supersymmetry, which takes particle physics beyond the standard model and which many believe is the next major step in the unification of all the forces of nature.